Symmetries and Asymmetries of Geomagnetic Fluctuations in High Latitude Conjugate Regions

This project is the continuation of research involving the operation of, and analysis of, data from a magnetometer at Frobisher Bay, NWT, Canada. The magnetometer is almost exactly "conjugate" to the South Pole station which supports a magnetometer belonging to the Co-Principal Investigator, L.J. Lanzerotti of AT&T Bell Laboratories. The object of the investigation is to determine the extent to which these two very high lattitude stations have similar or different magnetic flucuations and how the similarities or differences are controlled by the solar wind as measured by several space craft. Of particular interest are the magnetic signature of the merging of the sun's interplanetary magnetic field with the earth's field; so called flux transfer events.